REG: Laser Diagnostic System for Three Dimensional Velocity and Thermal Field Measurements

ABSTRACT JAMES LIBURDY CLEMSON UNIVERSITY CTS - 9500209 The proposal is to fund the purchase of laboratory equipment under the Research Equipment Grant (REG) program, and will provide an enhanced complementary holographic particle imagery velocimetry (HPIV) and holographic interferometry (HI) facility for measuring three-dimensional flows and thermal fields in systems of practical interest. Particular applications will initially be to gas turbine film cooling and to pulse combustors. The system will be in the Mechanical Engineering Department at Clemson University.